North Louisiana Mathematics Improvement Project

This Teacher Enhancement project will involve thirty teachers and supervisors in 15 northwestern Louisiana school districts in a program to upgrade both their mathematics knowledge and their instructional methodologies in the teaching of mathematics. The program participants will provide 8 inservice sessions for their colleagues in their schools utilizing materials and strategies developed during the program. Program staff will provide follow-up activities to assist the participants in their own classrooms as well as in the inservice sessions. Future plans include the dissemination of this program to other schools and school districts using the network established in this program. The program includes a spring meeting for orientation of participants to the background, goals and structure of the program. A three week summer workshop will stress mathematics content in whole and rational number operations, problem solving and computer applications. Participants will use this knowledge to develop classroom instructional materials and inservice modules for use in the schools. Mathematicians, mathematics educators and outstanding teachers will work with the teachers in the development and evaluation of these materials. Five formal one day workshops will be held during the following academic year to provide further assistance in implementation of the goals of the project. In addition, the Project Director will visit each school site a minimum of three times during the year. The Project Director is well qualified to conduct this program since she has been actively involved in the improvement of mathematics education for some time. An Advisory Council, representing several consti- tuencies, exists to assist in the planning and implementation of the project and an exemplary staff has been retained for both the summer workshop and the one day academic year sessions. An excellent project evaluation plan has been formulated.